Industry/University Cooperative Research Center on Polymers

9312548 Kantor This award provides funding for the first-year of a three-year continuing award for the "Self-Sufficient Partnership for Research" Program at the University of Massachusetts, Amherst Industry/University Cooperative Research Center on Polymers. The Center continues to meet the renewal criteria requirements of the I/UCRC Program. A three-year continuing award is also included for an evaluator to study the university/industry interaction occurring in the Center. Additional funding is provided for a minority undergraduate student to augment the Center's research program with a study "Optical Properties of Polymer Solutions." The Department of Energy's Environmental Restoration and Waste Management Office is providing funding to obtain a non-voting membership in the Center. Funding is also provided by the U.S. Army Natick RD&E Center and the U.S. Army Research Laboratory to obtain memberships in the Center. The Program Manager recommends the University of Massachusetts, Amherst be awarded: $40,000 for the first year of a three-year continuing award; $8,000 for the first year of a three-year continuing award; $5,000 for one year with funds provided by the Women, Minorities and Disabled Engineering Research Assistants Program; $10,000 for one year with funds provided by the U.S. Department of Energy; $20,000 for one year with funds provided by the U.S. Army Natick RD&E Center; and $20,000 for one year with funds provided by the U.S. Army Research Laboratory. Near the end of each 12-month period, the Program Manager and/or the Division Director of the Engineering Education Centers Division will review the progress of the Center on a number of renewal criteria, including the following: 1) the extent to which the university/industry interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will re commend support for the next period of this continuing award.